Bridging the Compiler-Simulator Gap: Faster and Easier Hardware/Software Optimization

Making computers go fast requires optimizing software that exploits the
hardware. Exploring new hardware ideas requires hardware simulators, AND
optimizing software matching the imagined hardware. It is time-consuming
and error-prone to build these and get them to match. The CoGenT project is
automating the building of simulators and matching software tools, so that
more people can explore more ideas, more quickly, for modern computers and
programming languages.

CoGenT, which stands for Co-Generation of (simulation and compilation)
Tools, with machine descriptions. From instruction format, execution, and
timing information, we produce predictive simulators for Java programs on
the described hardware. The Java system includes optimizing and
non-optimizing compilers, and we retarget both compilers to the target
hardware. We do this by using the same description forms for the compiler's
abstract machine as for the hardware target. We generate code generation
rules by searching for target instructions to match each possible abstract
code fragment. We are also concerned with automated construction of the
rest of the compiler back end, and with efficiency of the simulators we build.

While certain hardware innovations clearly demand entirely new techniques
to exploit them effectively, we automate those aspects addressed in the
existing optimizing compiler. Our contributions lie in the increased degree
of automation and integration of the techniques, and in improved simulator
performance. While the primary setting is simulation, the results are
useful in compiler retargeting, dynamic binary translation, and beyond.